REU Site Program in Membrane Applied Science and Technology

This award provides continued funding for a 3-year REU Site Program in Membrane Applied Science and Technology, at the University of Cincinnati, under the direction of Dr. William B. Krantz. This 10-week summer program will provide 10 chemical engineering undergraduate students from other institutions with research experiences with particularly emphasizing biomedical and pharmaceutical applications. This Site Program will be linked to the Cincinnati site of the NSF Industry/University Cooperative Research Center for Membrane Applied Science and Technology (MAST), the only block-funded membrane research center in the U.S. Each student will be assigned a faculty mentor and will work with graduate students in the MAST Center on challenging research problems defined by interaction with industry, interdisciplinary research, and exceptional facilities. In addition, the students will participate in a seminar focusing on research methods, probelm solving, ethics, communications skills and a student posters competition.